The Aging of Liquid Foam by Interbubble Gas Diffusion

Research is conducted on the aging of liquid foam by interbubble gas diffusion. This spontaneous phenomenon not only changes the bubble sizes and reduces the available surface, but, with sufficient time, leads to a reduction in the number of bubbles present and hence to ultimate coalescence of the foam. The experimental method employs two novel techniques. The first involves the very slow rotation of the foam about a horizontal axis. The second technique stops further aging by means of the very rapid hardening of the foam with nongas-producing polymerization and/or cross linkage. The foam will be generated by bubbling presaturated nitrogen through an appropriate liquid mixture. After the resulting foam is aged and hardened, its volumetric gas fraction, and bubble size and shape distributions will be measured photomicrographically at sampling planes within the foam that will be cut and polished for the purpose.